FSML: Improvements in Trace Element Analytical Facilities at Moss Landing Marine Labs

This project will upgrade instrumentation in the Trace Metals Laboratory at Moss Landing Marine Laboratories. The Trace Metals Lab of MLML has been a world leader in studies of the role of metals in regulating primary production in the ocean over large spatial and temporal scales. Moss Landing scientists have played a major part in developing new analytical methods for trace elements in aquatic systems. They have also played a key role in making freshwater chemists aware that there are significant methodological errors in previous measurements of metals in freshwater systems. As a result, MLML has served as an important center for training and development of analytical methods for trace chemical analysis. In the past 5 years,6 graduate students have finished MS degrees working with Trace Metals Lab staff and instrumentation. In addition, there have been a number of visitors to the lab from the US and overseas.